Operation Toolbox: A Program in Modern Biology for Science Teachers

Operation Toolbox: A Program in Modern Biology for Science Teachers Michigan State University will conduct a 5-week molecular-biology-based in environmental biology workshop in the summer of 1989 through 1991 at its Kellogg Biological Station (KBS). A total of 60 high-school teachers will participate over the three years. They will receive instruction in recent developments in environmental sustainability, agroecological practices and allelopathic control methods. They will also be shown how to integrate economic, ethical and political factors pertaining to environmental use into their curricula. Five mornings per week will be devoted to discussion and classroom activities, and the afternoons will be occupied with laboratory and fieldwork. The teachers will be divided into groups and each group will be expected to modify one laboratory exercise per week to make it applicable to their high school courses. A leadership component will be included, in which teachers who have had a previous molecular biology experience will be grouped with those who have not. The workshop is part of a comprehensive program to help teachers keep abreast of the developments in science, to provide them with a support system for course and curriculum enhancement, and to further communication within and among the various school constituencies. An amount equivalent to 34.7% of the NSF award is being contributed by Michigan State University and other sources as cost sharing.